Undergraduate Metallurgy Laboratory Improvement

This project provides hands-on experience for undergraduate mechanical engineering students on modern corrosion testing and measurement equipment. The equipment funded for this laboratory enhancement includes: a potentiostat, a corrosion cell, interface for a PC, and corrosion software. This equipment is used to measure corrosion current and corrosion potential of common engineering materials in different service environments, and to study the electrochemical principles of corrosion. The project is significant because the equipment serves as a teaching tool to give junior-level students experience with corrosion principles and it builds on experience with modern instrumentation that students have acquired in sophomore-level course. This award is being matched by an equal sum from the grantee.